On Planar Mappings with Invariant Continua

Proposal: DMS-0072626

Abstract.
This proposal is concerned with mappings of the plane which keep
certain subcontinua invariant. Historically the first significant
results for maps of the plane were obtained for orientation
preserving homeomorphisms. All homeomorphisms of the plane are
either orientation preserving or orientation reversing. In this
proposal we will introduce a new class of oriented mappings. Every
oriented map is either positively or negatively oriented. We
expect to show that all compositions of open and monotone (proper
and onto) mappings of the plane are oriented. We have generalized
known results on the existence of fixed points in non-separating
invariant plane continua for homeomorphisms of the plane to the
class of positively oriented maps. We expect this to be true for
all oriented maps. We will establish connections between these
problems and the structure of invariant continua of branched
covering maps of the plane including the structure of the boundary
of invariant simply connected domains. We will make use of prime
end techniques as well as results from continuum theory and
dynamical systems.